Problems in Theoretical Physics

Research in theoretical elementary particle physics will include work on string theory, the interface between particle physics and cosmology, fundamental problems in quantum theory, the application of quantum field theory to phenomena in particle physics and statistical mechanics, random matrix theory and lattice gauge theory. Research in string theory will focus on the search for a nonperturbative formulation. This includes study of physics at the shortest distance scales and of the quantum mechanics of black holes. Work on astroparticle physics will focus on problems related to matter production in the early universe, and properties of dark matter and its possible detection. Research on fundamental problems in quantum theory will concentrate on the role of classical chaos in various quantum systems, including quantum field theories. Work on the applications of quantum field theory will include the study of various phenomena in random matrix theory, in particle physics, and in statistical physics. Work in lattice gauge theory will be directed at the calculation of masses of strongly interacting particles, the weak decays of these particles, and the behavior of strongly interacting matter at high temperatures. The topics to be covered include some of the most interesting and centrally important questions in present-day elementary particle physics.